Cold Atoms, Cold Molecules, and Spectroscopy

This proposal for theoretical and computational work has two components. The goal of
the first part is to extend a recent treatment of Bose-Einstein condensates in double-well
potentials by Ananikian and the PI to take into account interactions with thermal atoms.
The second part of this proposal is intended to assist experimental efforts to produce
ultracold molecules from cold atoms. One difficulty is that the spectroscopy of these
systems is complex and unknown. Multichannel calculations are required to obtain the
important data which is crucially important to the experiments.